Global Change and Nitrate Assimilation

Global Change and Nitrate Assimilation

Carbon dioxide concentrations in the atmosphere that are associated with
global warming have risen by more than 30 percent during the past two
centuries and are expected to double during the next. Some scientists
believe these rising levels of carbon dioxide will benefit plants because
carbon dioxide is one of the essential ingredients in photosynthesis, the
process by which green plants use sunlight to manufacture the chemical
energy they need. Indeed, many plants initially respond to a doubling of
atmospheric carbon dioxide levels by assimilating 30 percent more carbon
dioxide into carbohydrate. Further study, however, reveals that the
accelerated rate of carbon dioxide assimilation is not sustained: within a
few days or weeks of exposure to elevated carbon dioxide, carbon dioxide
assimilation drops back to just 12 percent greater than normal, a phenomenon
known a carbon dioxide acclimation.

Bloom and colleagues discovered that carbon dioxide acclimation derives from
nitrogen deprivation because elevated carbon dioxide inhibits the
assimilation of nitrate into amino acids in leaves and nitrate is a major
form of nitrogen that plants obtain from the soil. Three mechanisms appear
to be responsible.

First, plants place a higher priority on assimilating carbon dioxide than
they do nitrogen, so when carbon dioxide levels rise, some of the high
energy compounds needed to assimilate nitrate are already tied up in
assimilating carbon dioxide.

Second, to make use of nitrate, the plants initially convert nitrate into
nitrite in the cytoplasm and move the nitrite into the chloroplast for
conversion into ammonium and then amino acids. Bloom's research indicated
that elevated levels of carbon dioxide blocked this vital transfer of
nitrite into the chloroplasts.

Third, under current levels of carbon dioxide and oxygen, most plants lose
about one-quarter of the carbohydrate that they could accumulate from a
process known as photorespiration. This process was thought to be wasteful,
unavoidable consequence of the method that most plants use to generate
carbohydrate. Bloom's latest results show that these plants must
photorespire in order to convert nitrate into amino acids.

These studies suggest that plant and tree species in natural ecosystems that
depend on nitrate conversion into amino acids in their leaves are likely to
be at a competitive disadvantage to those species that are either able to
convert nitrate into amino acids in their roots or use ammonium as their
predominant nitrogen source. As a result the distribution of plants in the
wild may change significantly as atmospheric carbon dioxide levels continue
to rise.

Nitrous oxide is another major greenhouse gas that contributes to global
warming. Bloom and colleagues showed that wheat plants emit a significant
amount of nitrous oxide as part of nitrate assimilation. The form of
nitrogen that a plant uses, therefore, may influence its nitrous oxide
emissions.

The proposed research will determine the interdependence among
photorespiration, carbon dioxide assimilation, nitrous oxide production, and
nitrate assimilation. It will employ Arabidopsis genotypes with altered
capacities to assimilate nitrate and a series of Flaveria species that vary
in their extent of photorespiration. Laboratory and field studies will also
examine the relative importance of ammonium and nitrate as plant nitrogen
sources. Lastly, at a national facility for monitoring the influence of
elevated carbon dioxide on desert flora, experiments will assess in situ the
extent to which carbon dioxide inhibits plant nitrate assimilation.